The Physics of the Earth's Environment: Young Scholars Institutes for Rural Girls in Nebraska

The University of Nebraska-Lincoln will initiate a 3-week residential Young Scholars project for 45 new and 45 returning students in grades 9-10 in physics and earth science. Using the theme of the Physics of the Earth's Environment, we will offer three-week Young Scholars Institutes for bright girls from rural schools in Nebraska. Each institute will introduce the girls to basic physical science and mathematics concepts and computer technology through practical hands-on activities. On completing her first science institute, each girl will be provided with a personal computer and modem, and linked to a state-wide electronic bulletin board. Institute staff will provide ongoing mentoring through frequent contact with each girl. The entering ninth grade girls will do instructional and research projects related to The Physics of the Solid Earth. in the second summer the entering tenth grade girls will do instructional and research projects related to The Physics of Earth's Water. The girls' parents and teachers will be involved in the project through workshops and conferences.